CS&E Research Associate: High Performance Computing in Stochastic Modeling

This award is for a postdoctoral associate in Experimental Science. The associate, Anapathur Ramesh, will be working on high performance computing applied to Stochastic modeling.